Engineering Equipment Grant: Fast Nonlinear Optical Phenomena in Novel Semiconductor Superlattices

This equipment grant will support the construction of a high repetition rate amplifier system for femtosecond dye laser pulses. The PI plans to investigate the nonlinear optical properties of novel group II-VI semiconductor superlattices containing magnetic ions, when subjected to short pulses of nearly resonant high intensity laser radiation. The experimental work involves the use of high power picosecond and femtosecond laser techniques at visible wavelengths. Of specific physical interest are interactions in a dense exciton gas from the standpoint of insulator-metal transition, including the presence of an external magnetic field. Generally, such phenomena are associated with large optically induced changes in the material transparency, thereby providing a device connection to fast optical switches.